Research Experiences for Undergraduates in Chemistry at Brandeis University

Professor Irving R. Epstein and other members of the Chemistry Department at Brandeis University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. During the summer of 1990, ten (10) undergraduate students will spend ten (10) weeks actively engaged in a variety of research projects. Projects range from gas phase kinetics and crystallography of rearrangement to preparation of organometallic complexes and optical studies of liquid crystals. Students will be housed in a single complex on campus and will be guided through the steps of writing a formal research report.